Conference: NAIRR: Strengthening & Democratizing The U.S. AI Innovation Ecosystem Summit

After 18 months of public meetings and deliberation, the National AI Research Resource (NAIRR) Task Force fulfilled its Congressional mandate, unanimously approving a guide to the policy and practical aspects of building a national resource for AI research. This process has been deliberative and included a wide range of stakeholders in considering an effective and equitable method of making resources for AI research -- including computing power, data, toolkits, and more -- available to a broader universe of researchers. With the advent of modern AI, this form of collaborative yet broadened investment has been deemed necessary by Congress and the Administration, and presents a necessary step forward to grow the U.S. scientific enterprise.

The objective of this workshop is to explore the findings of the National AI Research Resource Task Force's final report with a diverse group of stakeholders from the broader ecosystem, and to then determine practical next steps to begin building such a resource using existing and future mechanisms. In addition to the diverse cohort of attendees, a recorded live stream subsequent reporting will further disseminate workshop outcomes to the public.